EarthCube Domain End-User Workshop: Community-Based Cyberinfrastructure for Polar Science Instrumentation, Technology, and Environmental Monitors

The project consists in the organization of a workshop aiming at bringing together scientists from the polar science domain
and cyberinfrastructure specialists. The goal is to gather requirements and develop a vision for an advanced
information and knowledge management system that will transform the way instrumentation, technology,
sensors and environmental monitors are used in polar regions in the conduct of science.
The workshop will provide community feedback to the EarthCube
initiative and the Polar Cyberinfrastructure program to design and develop the architecture of an Earth
Science cyberinfrastructure that is aligned with the end-users' needs for new systems aimed
data acquisition, field storage, transmission, security, redundancy and the deployment infrastructure
techniques and material for these systems. The format will be the same as previous Earthcube sponsored workshop.
The workshop will target requirements on science-drivers on the latest
needs in instrumentation/sensing systems, field computing, power: generation, handling, distribution
& storage, data: storage, reliability and transmission, environmental enclosures, field deployment
techniques and other needs to design strategies for funding opportunities that will support
scientists and engineers to perform outstanding and ground-breaking research in the polar
regions. The workshop will target a broad spectrum of
polar scientists, with the goal that a significant contingent of early career scientists will
participate.